MathematicsModels.org Expansion Project

Mathematical Sciences (21) This project is expanding several components of the MathModels.org site in order to support its use as a forum for the exchange of ideas and course materials for mathematical modeling. Areas for expansion include i) building up the site's tools for collaboration (e.g. e-discussions and both synchronous and asynchronous interactions on joint projects); ii) adding new course material in the form of modules and capstone course outlines; iii) creation of materials and other guidance documents regarding professional careers that feature prominent use of mathematical modeling; and iv) undertaking a major outreach effort to engage both the community of business and industry practitioners who can mentor students and the community of faculty who are teaching formal mathematical modeling courses or otherwise using mathematical modeling techniques in their classes.